Defining the Scientific and Legal Uncertainties of Carbon Sequestration in the Ocean

ABSTRACT

OCE-0096460

Sequestration of atmospheric carbon dioxide (CO2) in the ocean by nutrient additions as well as direct deep ocean injection of CO2 remains an active and controversial area of scientific discussion and research. Multiple scientific experiments have successfully demonstrated the efficacy of short-term, small scale iron additions to spur phytoplankton growth. At least four industries are now studying the feasibility of larger scale commercial operations ostensibly to increase fish production and potential carbon trading programs in the future. Presently there are no scientific or legal protocols to provide oversight to these operations and guidance for the public to assess these commercial scientific ventures.

With support from this grant, the American Society of Limnology and Oceanography (ASLO) will convene a two-day workshop in the Spring of 2001 to define the scientific and legal uncertainties surrounding C sequestration in the ocean. The proceedings from the workshop will be published in a peer- journal. In addition, the workshop will help form the issues and rationale for a larger symposium on ocean carbon sequestration at some future time.

ASLO is well suited to conduct this workshop. The Society conducted one of the first scientific symposia on Fe limitation of primary production in the ocean and the proceedings were published in a special issue of Limnology and Oceanography, the societal journal, in 1992. In addition, the Council of Environmental Challenges at MIT (an alliance of academic and industry scientists) will co-host the workshop and provide logistical support. The final agenda, however, will be determined by an independent steering committee.